Bridging Randomized Experiments and Observational Studies

Although perfect randomized experiments are the gold-standard for drawing causal inferences about the effects of treatments, they are often impossible to conduct to address important questions. Limitations of randomized experiments include ethical considerations with human subjects, length of time to implement, and complications such as noncompliance. Recent work for drawing causal inferences in non-randomized studies that combines both statistical and traditional econometric approaches in creative ways shows great promise for building new and important bridges between the perfectly controlled randomized experiment and the uncontrolled observational study. Continuing this work should lead to important new techniques for the analysis of imperfect studies for causal effects. Substantial current applications include inference for the effectiveness of `choice` programs relative to standard programs for elementary school education.